Research Instrumentation: Digital Image Archiving and Viewing Station

High resolution recording, display, and computing equipment will be purchased with this award and used in research projects involving image processing. The research will primarily take place in the Digital Image Analysis, Computer Vision, and the Color Image Processing Laboratories where projects include a common need for long-term archival storage of large, multi-dimensional imagery and visualization of processing results.